PostDoctoral Research Fellowship

This award is made as part of the FY 2020 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Carl Lian is " Moduli of Curves and Linear Systems." The host institution for the fellowship is Humbolt University , and the sponsoring scientist is Garvril Farkas.